Developing Trainable Brownian Circuit Ensembles for Sample-Efficient Precision Randomized Benchmarking and Quantum Advantage in Near-Term NISQ Hardware

This project aims to advance quantum information science by developing diagnostic tools for testing and validating the performance of next-generation quantum computers. Quantum computers promise to solve difficult problems far beyond the reach of classical machines, but today’s quantum devices remain highly sensitive to noise and errors, and some existing performance tests can be simulated or misleadingly reproduced by ordinary computers. To address these challenges, this project will use mathematical models of quantum chaos to design more precise and trustworthy benchmarking methods for near-term quantum hardware. The work will advance the progress of science, strengthen American competitiveness in the global quantum technology race, and support national priorities in quantum science by helping to establish rigorous standards for validating quantum devices, with potential long-term benefits for materials science, drug discovery, artificial intelligence, and secure information processing. This project will support workforce development by training undergraduate and Ph.D. students in modern quantum technologies, integrating advanced quantum concepts into university courses, and engaging the public through accessible videos, a public website, and local outreach events.

The technical objective of this project is to develop Brownian random quantum circuits into a flexible framework for precision randomized benchmarking and quantum advantage certification in noisy quantum hardware. The project will use the connection between Brownian circuit models and quantum many-body physics to analyze benchmarking problems using established analytical tools adapted from quantum many-body theory. Compared with conventional approaches, Brownian circuits make it possible to access higher-order statistical information at arbitrary circuit depths while incorporating scrambling, decoherence, weak measurements, and unitary errors within a single framework. The research will pursue three connected directions: noisy Bell-sampling protocols that can support sample-efficient tests of quantum advantage; noisy many-body echo and quantum-chaos probes that can distinguish genuinely quantum behavior from classically simulatable dynamics; and trainable Brownian circuit ensembles that can learn detailed hardware noise profiles, improve benchmarking performance, and generate useful random circuit distributions. The expected contributions include new noise-robust benchmarks, more detailed diagnostics of quantum hardware performance, and a theoretical foundation for trainable randomized benchmarking protocols that can help validate and improve future quantum processors.